Computational and Applied Aspects of Multiperiod Stochastic Programming

This project will develop methods for approximations and solution procedures for multiperiod stochastic programs. The project will continue to develop and use realistic models from a variety of areas, including manufacturing, finance, vehicle routing, and energy policy. The major goals are to obtain practical solutions with known error characteristics efficiently. These goals will be accomplished through the development of new decomposition and interior point methods for distributed processors, new bounds on the value of the stochastic solution, new techniques for bounding stochastic nonlinear programming problems, and new approximations using parametric solutions and continuous distribution approximations. These methods will be assessed with the ongoing development of the stochastic programming model library. Comparisons will consider alternative approaches with computational effort, error analyses, and values of information and model complexity.